Presidential Faculty Fellow Award

9350247 Hamer This research will investigate the genetic and molecular biochemical processes involved in a devastating fungal disease of rice, called rice blast disease. Teaching and curriculum development will seek to combine instruction in the molecular genetics of model research organisms together with the challenge of developing an awareness of applied research problems. %%% This award allows a promising young scientist to develop a research program and train others in an area of import basic and applied interest. ***